III International Conference on Modeling of Rainfall Fields:Hydrologic and Meteorological Aspects, to be held February 27-March 1, 1991, College Station, Texas

The purpose of this work is to organize and conduct a conference on the preferred use of rainfall observations to the mutual benefit of selected problems in meteorology and hydrology. Participants will include students, meteorologists, and hydrologists. This forum is the third one of a series initiated in 1984.